Factors Reducing the Negative Consequences of Adolescent Parenthood

The primary objective of the project is to develop a competitive research proposal on "Factors Reducing the Negative Consequences of Adolescent Parenthood". The objectives of the proposed research are the following: .To identify personal characteristics and social mechanisms which serve to reduce the negative consequences of adolescent parenthood. .To increase the knowledge and understanding of role transitions and status attainment. Broader Significance of the Project Support of the project will assist a well trained black sociologist to improve her research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for other research support.